A Study of the Industry/University Cooperative Research Center for Process Analytical Chemistry

Analytical chemistry provides the basic mechanism for the control of chemical and biological processes. Major increases in productivity can occur when these analytical techniques can be developed to provide on-line control of continuous chemical processes. A planning grant was awarded to the University of Washington to study the potential for a Center in Process Analytical Chemistry. The study showed that a Center was needed and has the potential to become self-sustaining through industrial support. Thus, a Center for Process Analytical Chemistry is initiated at the University of Washington as an experiment in university/industry interaction. Research will be responsive to industrial supporters.